Using Computers and Problem Solving to Improve Instruction in Secondary School Mathematics

Southern Illinois University (SIU) has put together an interesting three-part project to strengthen mathematics education within the University and the greater St. Louis areas. It will offer 32 teachers of secondary school mathematics the following: (1) the opportunity to participate in a 6-week summer session which will emphasize problem solving and the appropriate use of the computer in mathematics education, (2) the necessary guidance to develop useful classroom materials for the teaching of mathematics and computer science, and (3) the resources of the University in establishing a support network through the creation of a mathematics resource center. Participants will have a sufficiently good background in mathematics. At least two, but no more than four, will be selected from a single school to insure peer support in the school setting. TenCo, a 10 county microcomputer consortium, has not only expressed support for this project, but has agreed to make its very large library of computer software available to the University and participants of the program. Biweekly group meetings, patterned after the very successful meetings of the elementary school Teachers' Center Project at SIU will be held during the academic year for the purposes of exchanging information and feedback on materials and their use. Seminars will be held at both campuses of SIU, at Edwardsville and East St. Louis, to insure continued involvement of minority teachers. These meetings will serve as the basis of a local teacher "network." Group activities will include programs of interest to University faculty, participants, and their colleagues.